SBIR Phase I: Molecular Layer Chemical Vapor Deposition for Advanced Metallization

9860994
This Small Business Innovation Research Phase I project from TimeDomain CVD Inc. will develop molecular layer chemical vapor deposition (MLCVD) processes and equipment for deposition of barrier metals, which are employed in IC manufacturing to prevent undesired interactions between layers. MLCVD techniques for titanium and tantalum-based barrier metals required for Cu metallization will be developed. The films deposited are intrinsically conformal, as well as intrinsically uniform in thickness across the substrate. Processing capabilities arising from this work can be incorporated in the barrier modules of cluster deposition tools.